Dissertation Research: Cultural Variables in Medical Treatment Choice in a Peasant Community

Western medical techniques have been introduced to most indigenous communities worldwide. Yet they are not always used and the reasons why individuals choose to use or not use these treatments is not understood. This project explores the relationship between choice of medical treatment and perceived health outcomes in Chugurpampa, Peru, an Andean community where peasants have access to both western and indigenous medicines. The researcher will look at cultural variables and external forces with regard to perception, thereby refine current choice models that ignore these variables. This study will contribute to medical anthropology by determining the factors that account for the medical choices of indigenous peoples and by improving the means with which scientists measure health outcomes. It will also contribute to better health care planning for indigenous populations.